Electrophoresis for Laboratory Instruction and UndergraduateResearch

9452474 Danielson Although electrophoresis is a very important analytical tool for biochemistry and the life sciences, it is rarely considered as part of an analytical instrumental laboratory course. Capillary electrophoresis (CE) is a relatively new technique that can demonstrate both the separation power and quantitative capability of electrophoresis in a short period of time. Our undergraduate students are carrying out CE experiments that demonstrate the separation of closely related compounds such as optical isomers as well as the basic theory. A comparison of CE to standard gel electrophoresis is also being made. Both techniques have good resolution capability but only CE is amenable to facile quantitation. In addition, two undergraduate research projects, one in analytical chemistry and one in biochemistry, are using the capillary electrophoresis instrument.